Parent-Child Interaction Planning Grant

9705569 Fugate The Louisville Science Center and the National Center for Family Literacy will engage in a year's planning to introduce the Parent- Child Interaction Project to teams of educators in six target cities. The goal is to explore the feasibility of a future national implementation of the model. The Parent-Child Interaction Project aims to empower underserved parents to become their child's most important teacher and provide these parents and their children the opportunity to gain science, mathematics, and technology education together. The participants are the parents and pre-school children enrolled in family literacy programs. During the Project, parents and children will make at least four trips to the participating science-technology center and evaluate their trips during follow-up class sessions. The joint efforts of the family literacy programs and science- technology centers can achieve the following goals: * Improve the involvement of low-income and low-literacy parents in the education of their children, specifically in the areas of science, mathematics and technology. * Increase the awareness of local science and technology centers as available community resources, particularly for underserved audiences. * Use science center visits and related projects to extend NCFL classroom learning for adult education students, their children and their teachers.